Studies of Atmospheric Processes Using Imaging Science Techniques

Aeronomy is a field robustly interdisciplinary and fundamentally dependent upon multi-diagnostic observations and advanced computer modeling capabilities. This proposal describes networks of existing all-sky-imagers (ASIs) and the contributions they can make to some of the outstanding problems in Space Physics. The term “Imaging Science” is used to describe the avenues of exploration enabled by actual two-dimensional images of emission, as well as the visualization aspects of data analysis, and the pictoral portrayal of modeling results. The infra-structure required for a team science effort is led by an experienced team of PI and senior staff for instrument operations, observations, data transfer, data management and rapid availability to multiple research communities. The effort is conducted in conjunction with research colleagues and students eager to use new observations to further their studies of Ionosphere-Thermosphere-Mesosphere (ITM) physics.